Synchronization and Analysis of Experimental Data

This research program will offer a general framework for understanding synchronization in coupled nonlinear systems with different characters and/or different parameter values. The methods developed for analysis of phase and generalized synchronization will be used to understand complex behavior in general, and in particular to understand synchronicity in neuroscience.